Young Scholars Program in Modern Mathematics

California State University @ Los Angeles will initiate a 4.5-week, commuter Young Scholars project in Mathematics for 50 students entering grades 10-12. Participants will study group theory, number theory and computer applications of these topics. In addition to attending lectures and presentations, students will work on problem sets, engage in library preparation for the careers being discussed, participate in field trips to local university and industry sites, and write two essays on relevant philosophical/ethical and career-related questions that have been raised.